Compiler Infrastructure: The SUIF Compiler Infrastructure

This proposal aims to establish a royalty-free, national compiler infrastructure that serves the needs of the research community and industry. A successful infrastructure will have a major impact on computing . The availability of such a system will make compiler research and development more accessible to a larger community, and the system itself can form the basis of a modern compiler for commercial use. The investment in this infrastructure is expected to be greatly amplified through community participation. As a focal point to bring together all the talents in the compiler area, the infrastructure can develop into a super-system that surpasses any existing system. Such an infrastructure can bring about the kind of acceleration in compiler development needed to match the phenomenal advances in processor architectures. The proposed infrastructure includes robust front ends and back ends, as well as many different state-of -the-art program analyses and optimizations.